Incineration of Fixed Nitrogen Compounds

The main goal of this research project is determination of reaction pathways for the oxidation of nitrogen-containing organic compounds. The effects of products of hydrocarbon pyrolysis and oxidation on the reduction of NO will be examined. These NO reduction experiments, to be carried out in an adiabatic flow reactor operating at 800-1000C, will be conducted with both pure organic nitrogen compounds and with these compounds diluted with hydrocarbons to yield a fuel feedstream with 2-10 percent nitrogen by weight. The gas within the flow reactor will be sampled at various axial locations using a water-cooled quartz-lined sampling probe; these samples will be analyzed simultaneously using a gas chromatograph and an NO/NOx analyzer. The effect of the carbon-nitrogen bond on formation of NO will be studied for complex nitrogen compounds such as quinoline, benzonitrile, and urethane. The distribution of nitrogen intermediates from these complex nitrogen compounds will be measured. The data will be analyzed to determine the significant reaction pathways using a quasi-global model of the hydrocarbon chemistry and a detailed model of the nitrogen chemistry. An important output of this study will be evaluation of the feasibility of incinerating high concentrations of nitrogen compounds. Many waste streams from the chemical, petroleum, and pharmaceutical industries contain such organic nitrogen compounds and present particularly difficult problems as regards environmentally safe disposal. Reaction models developed as a result of these studies will be used in design, analysis, and evaluation of procedures for proper incineration of such waste streams.